Credibility in Stabilization Programs

This project focuses on the credibility of stabilization programs. Its main objective is to develop and test a positive theory of stabilization. Governments face uncertainty about the effectiveness of the measures they initiate in a stabilization program and about variables whose realization, subsequent to stabilization, will affect the viability of their program. They choose a program that selects the preferred tradeoff between the costs of program failure and the costs of adjustment that make a collapse less likely. A model along these lines establishes an ex ante optimal probability of program success as a function of structural characteristics of the stabilizing country. Specifically, a program is more likely to succeed the higher the reserve levels and the responsiveness of the economy to adjustment measures. A program is less likely to succeed the higher the marginal (political) cost of adjustment, the more prevalent the capital flight, and the higher the variance of foreign exchange flows. The plan is to test a model along these lines by studying a wide range of stabilization programs. In addition, three related questions will be addressed: (1) the liquidity premium required to induce a return of capital flightin the aftermath of a stabilization will be modelled (2) a model of the phenomenon of high realized real interest rates in the post- stabilization phase will be developed (3) a model will be built and tested of the large decline of long-term interest rates in high- debt European economies, specifically, Ireland. The principal substantive point to be made about credibility is that governments cannot create facts (policies) that are set once and forever, immutably. Any program can be undone (with more or less difficulty) by the next government. Moreover, even a well- designed program may not be sturdy enough to withstand shocks such as a major, unexpected terms of trade deterioration. Thus credibility is a relative term and there is a need for a theory to capture how the public forms a judgment about it and how that judgment possibly interacts with the credibility. In turn, the development of a successful model of credibility, will depend on an understanding of the underlying reasons for the failure of stabilization programs.